RIA: The Fast Discrete Radon Transform

Madisetti This research is investigating a new method for the computation of the Radon transform and its inverse that avoids a number of problems associated with conventional methods. These include sensitivity to noise, necessity for interpolation, and significant amounts of computation. The discrete Fast Radon Transform (FRT/IFRT), as this method is called, provides an increased flexibility in sampling, in addition to a dramatic reduction in the computational complexity. The basic approach taken is to apply advanced signal processing techniques in the frequency domain to the reconstruction problem. Use of optimization methods and the properties of discrete periodic signals, result in a rich theory for the FRT/IFRT. Experimental results have validated theoretical analyses of its performance.